Symbolic Methods for Classification Problems In Lie Theory and Differential Geometry

Anderson

The investigator develops and implements algorithms for a number
of classification problems in the areas of Lie algebras,
differential geometry, and differential equations. For each of
the problems of interest, the list of representative objects is
very large. Therefore he encodes these classification results
within a computer algebra system and develops software that
allows for the efficient but flexible manipulation of the large
amounts of data contained in these classification results. This
work provides researchers with powerful new tools to find
examples and test conjectures on a wide range of subjects. The
specific classification problems that are addressed first deal
with the classification of low dimensional Lie algebras and their
sub-algebras, the classification of vector field systems in 2 and
3 dimensions, and the classification of 4- and 5-dimensional
space-times with symmetry.

The classification of mathematical structures is a central theme
in many branches of mathematics. While these classification
problems can be easy to state, the solutions are often very long
and complex and therefore not accessible to the larger
mathematical and scientific community. A major component of this
project explores new nontraditional methodologies (based on
computer algebra systems and also data-based Java applets) for
the dissemination and generalization of these results.
Applications to the automated solution of differential equations
are studied. The computer software that is being developed to
support these specific goals has applications in other areas of
mathematical research and in theoretical physics. It also has
demonstrated pedagogical value for both undergraduate and
graduate mathematics education.